Advanced Composite Materials and Systems

0243801 Toutanji

This award funds a three-year Research Experience for Undergraduates (REU) Site at the University of Alabama Huntsville (UAH) that will provide students with a research experience in the area of advanced composite materials and systems. Student participants, ten each year, will be engaged in educational and research activities over a period of ten weeks during the summer. Each student will be assigned to a clearly defined project that is related to current research efforts at the university. The students will not only participate in scientific research but will also learn how to integrate their work into larger projects. Students will be recruited from the following groups: UAH programs, minority-serving institutions, and four-year schools that do not have large research programs. This REU Site is supported by the Department of Defense in partnership with the NSF REU Program.